DISSERTATION RESEARCH: Trophic Dynamics in the Fine-root Based Food Web: Integrating Resource Heterogeneity, Root Foraging, and Root Herbivory.

While fine roots are a key component of ecosystem carbon cycling, interactions
between soil resources and roots are typically studied without considering potential
interactions with root herbivores and their natural enemies. We propose to use field and
greenhouse experiments to investigate the influence of resource availability, resource
heterogeneity and root herbivory on above- and belowground biomass and preliminary
competitive outcomes in early-successional southeastern U.S. forests. Preliminary data
has shown that herbivores play a strong role in this system, and demonstrated strong
positive responses of root herbivores to small-scale (<50cm 2 ) resource-rich patches. This may have strong negative impacts on plant species that preferentially forage in such patches, while allowing less-aggressively foraging plant species to persist where they would otherwise be outcompeted.